International Conference on Advances in Computational Mathematics, New Delhi, January 4-9, 1993, Award in Indian and U.S. Currencies

Description: This proposal is for group travel to an international conference "Advances in Computational Mathematics" to be held in New Delhi, India from January 4-9, 1993. Co- organizers of the meeting are H.P. Dikshit, pro-vice chancellor of Indira Gandhi National Open University and Charles Micchelli, IBM T.J. Watson Research Center. Most Indian participants come from a wide spectrum of Indian researchers in Applied Mathematics. The main purpose of the meeting is to foster the development of research in Computational Mathematics in India through the exchange of the latest developments in this field. The technical subjects that will be highlighted include: wavelet analysis, solution of nonlinear equations, information based complexity, finite element analysis for the solution of partial differential equations, computational complex approximation, applications of orthogonal polynomials, multivariate data fitting and spline functions, and computer aided geometric design. These are among the most active fields in numerical computation. Scope: This proposal will support the cost of airfare for eight distinguished research mathematicians and computer scientists from the United States. This is one of the most active fields in Indian science. As the attendance of Ph.D. students and young faculty members will be encouraged explicitly, this conference should make an important contribution to the training of young Indian scientists in computation. Applied Mathematics offers a developing country, particularly India, the tools to address some of their important technological problems. It also provides a natural context to make best use of their scientific and mathematical talents. This meeting should contribute to this process and encourage US-Indo collaborative research.